Non-Linear Flow Dynamics of Polymer Liquids

Abstract
CTS-0100579
L. Archer, Cornell University

The PI proposes to explore the effect of entanglement density on polymer dynamics in terms of damping function, time-strain factorability, and orientation angle. The investigation will include experiments to identify nonlinear rheological characteristics of entangled polymer systems in shear and extensional flows. Furthermore, experiments will be designed to examine aspects of specific molecular scale phenomenon in the nonlinear polymer flow behavior. Based on the information obtained, molecular-based constitutive equations will be developed.